Demonstration of the Operational Capability of ALFOS Floats

This proposal is to test prototype oceanographic floats (AFLOS) which are tracked acoustically (RAFOS) andcycle from surface to the ocean interior on a regular schedule (ALACE). These tests will enable engineers and scientists to gain experience in the deployment and operation of the devices.